CSR: Small: The Pocket Datacenter

Research and development in cloud-based distributed systems is currently
hindered due to the incredible difficulty of running such systems at
scale. The Wisconsin Pocket Datacenter (PoD) project directly addresses this
dilemma by enabling researchers and developers to run large-scale distributed
systems on modest hardware resources. The key novel idea behind PoD is data
elision, which removes actual application data from the underlying disks,
memories, and network transfers of the distributed system under test. PoD thus
enables many virtual instances of such a system to be run upon just a few
physical machines, thus making testing, debugging, and in general development
simpler, faster, and less resource-intensive.

Cloud-based distributed systems represent a critically-important piece of
modern computing infrastructure. As users and corporations migrate their data
and computation into such facilities, it is increasingly important to ensure
that such systems operate correctly and efficiently. PoD enables developers to
debug existing systems and test new designs without excessive hardware
resources; with such a tool in their workbench, system developers will be able
to more readily build and test the next generation of cloud-based systems to
support the needs of a growing percentage of society.